Quantum Tunnel Optical Detectors, Modulators, and Sources New Devices for Ultra-High Speed OEIC's

A three year program of research is proposed on a new class of majority carrier optoelectronic devices based on a recently developed technique for making electrical contact to the deep InAs quantum well in pseudomorphic AlAs/InAs/InGaAs resonant tunnelling diode heterostructures. These radical new devices all operate on intersubband electronic transitions between the conduction band levels of a single InAs quantum well and on tunnelling of electrons into and out of the same quantum well; they represent a major advance in the state-of-the- art-. Work is proposed on tunnel injection, quantum well level laser diodes for the 2-5 um region; on sub-picosecond quantum well level, tunnel barrier infrared photodiodes; and on ultrafast quantum well level, tunnel barrier optoelectronic modulators and non-linear optical components.